B Physics and CP Violation Conference in Honolulu, Hawaii, March 1997

One of the highest priority areas in elementary particles physics is experiments that test the standard model through the symmetry between particles and anti particles known as CP symmetry. This conference is designed to study recent advances in this area as they relate to the b-quark, predicted to be one of the best tools for such studies.